Mathematical Sciences: Assessment of Sequential Probabilistic Forecasting Procedures

The principal investigator has transferred from the University of California at Berkeley to the University of North Carolina at Chapel Hill. The original abstract is still valid.